CICNet

CICNet, a midlevel network supplying high level connectivity to the universities of the Committee on Institutional Cooperation (CIC) (which includes the universities of Ohio State, Michigan State, University of Michigan, Indiana University, University of Chicago, Purdue University, University of Illinois, Northwestern University, Universtiy of Wisconsin, University of Minnesota, and University of Iowa) and establishing cooperative working agreements with intrastate networks in its region, will be provided funding to support the continued operation of the CICNet data network. The primary focus of this project is to improve the technological and operational aspects of CICNet and extend and expand the value of CICNet and of the many resources to which it provides access. The initial award to the University of Illinois for the start of CICNet has provided two years of operation during which time CICNet has provided high bandwidth connectivity (1.544 milliion bits per second) for the midlevel region from Ohio to Minnesota to the NSFNET Nationwide Backbone Network. This renewal outlines the continuation of the operation of this network as well as the expansion of network information services with a special emphasis on end-user orientation.***//